FSML: Upgrading Seawater Filtration Capabilities to Enhance Support of Research Using Seawater System Facilities

This project will support the upgrade of the seawater filtration capabilities
of the sea water system at the Chesapeake Biological Laboratory (CBL)
to provide enhanced support research programs involving culturing of
marine organisms. The controlled experimental research that characterizes
much of today's activities at marine laboratories includes leading-edge
biochemical/molecular and physiological/bioenergetic research on the
ecology of marine organisms. The nature of the sea water systems
at marine laboratories have evolved from simple supply of, at most,
coarse-filtered sea water to holding tanks and aquaria to fairly sophisticated
systems that must provide fine-filtered and temperature-regulated sea
water to support the experimental studies underlying that research.
Over the last decade the sea water and laboratory support facilities at
CBL in its Truitt Controlled Environmental Laboratory(CEL) have been
redesigned, reconfigured, and engineered to provide the treatment
components that support experimental needs. Many of the research
programs carried out at CBL in the fields of ecology/oceanography,
aquatic toxicology, and environmental chemistry/geochemistry depend
on the high quality of temperature-controlled and filtered sea water
provided to support the experimental studies of marine organisms in
the Truitt Controlled Environment Laboratory.

However, the present filtration equipment is inadequate for the larger
demand and more stringent quality requirements for filtered sea water
to support the research needs currently underway and anticipated growth
in the near future. Maintenance of the present system is also labor intensive.
This project would replace the current sand filter system with a membrane-
Based micro-filtration system that will double the present volume of filtered
water (from 50 to 100 gpm) and greatly increase suspended particle removal
(from>5 to 1 micron). The new system will eliminate inadequate especially
during summer months when research demand for filtered water is especially
high and the need for downtime and labor-intensive and costly media changes
using the present pressure sand filter technology.